Synthetic Studies in the Field of Natural Product Chemistry

The Synthetic Organic Program supports the work of Yoshito Kishi. Kishi, Professor of Chemistry at Harvard University, is involved with a broadly based program of natural products chemistry. Included is a continuation of work on the synthesis of palytoxin, one of the most complicated organic compounds known. As a consequence of these efforts, new approaches to examine the shapes of complex molecules, and answers to fundamental questions about factors controlling the shapes of sugars are being developed. New methods for understanding the phenomena of bioluminescence and syntheses of compounds responsible for natural bioluminescence are also being undertaken. The major objective of this work is to make significant contributions to organic chemistry through investigations into eight research topics including: the total synthesis of palytoxin, the local conformational analysis of palytoxin, the conformational analysis of C- and O- glycosides, preparation and chemistry of helical oligopeptides, bioluminescence chemistry of dinoflagellate and krill systems and the bioluminescence of mushroom systems.